Support for the Seventeenth International IUPAP Conference on Few-Body Physics

This award provides support that enables graduate students
andpostdoctoral fellows to participate in the Seventeenth
International Conference of Few-Body Problems in Physics. The
conference is sanctioned by the International Union of Pure and
Applied Physicists (IUPAP). It is the most highly attended meeting
of experts in the area of few-body physics, averaging about 250
physicists in the last three meetings. Theintellectual scope of the
conference covers topics on quantum few-body problems at all
distance scales, ranging from subnucleonic to molecular systems.
Traditionally, this conference has served as a catalyst in the
formation of international collaborations that have addressed some
of the most challenging problems in the field. Giving young
scholars the opportunity to engage in these exchanges is a
significant investment in the future of the field. An important
outcome of the conference is the setting of short-term goals for the
field. The proceeding of the conference will be published in the
Nuclear Physics A journal and will be available to the broader
research community.